Scientific Video Equipment

The quality of undergraduate laboratory instruction at Mount Holyoke College is being enhanced through the recent acquisition of video equipment to illustrate the conduct of laboratory work on a micro scale in chemistry, biology and psychology. Micro-scale laboratory work is necessary in many departments currently for reasons of safety, economy, and ease of waste disposal. In each of the three disciplinary areas, high resolution, high color fidelity video is being used to instruct students in micro-manipulation and identification. Properly recorded and edited video tapes preserve simulations and experiments for student use in the future.